Airborne Science Data Relay Using ORBCOMM

9361427 Langford Atmospheric science platforms of all types require a reliable and cost-effective means of communicating with home laboratories. Current satellite techniques suffer from low data rates, excessive latencies, high costs, or other complications. A new generation of low-altitude commercial data relay satellites offers attractive opportunities to improve over-the-horizon telemetry and telecommand. Aurora Flight Sciences proposes to develop and demonstrate and atmospheric science data link using Orbital Sciences Corporation's ORBCOMM satellite system. While Aurora's work will be directed towards data relay requirements for aircraft and balloons, it will be applicable to a broad range of science pursuits including buoys and ground stations. ***